Research Experiences for Undergraduates in Chemistry at the University of California, Santa Cruz

9322464 Wipke Dr. W. Todd Wipke and other members of the Chemistry Department of the UC-Santa Cruz are being supported to continue a Research Experiences for Undergraduate site (REU) in Chemistry. For the period 1994-6, ten undergraduate students each summer will spend ten weeks in a variety of research projects. Projects cover the traditional areas of chemistry- analytical, inorganic, organic and physical. The program will focus on women, minority and handicapped students.